CT-ISG: The Foundational Security of Elliptic Curve Cryptography

In the ever expanding cyber community public-key cryptography is
deployed at various platforms and gateways to ensure authenticity,
confidentiality, and integrity in all kinds of communication and
transaction. Therefore the security of public-key cryptography is
foundational to the security of the cyberspace. Elliptic curve
cryptography has risen in recent years to meet the challenge of
constraints in bandwidth, power, and size in wireless and mobile
communication, and is likely to become the mainstay for public-key
cryptography in the wireless arena. This research focuses on
critical issues concerning the foundational security of elliptic
curve cryptography. A unified approach using the theory of global
duality is developed to study the discrete logarithm problem upon
which elliptic curve cryptosystems are based. This research seeks to
identify and classify weak cases of elliptic curve groups beyond
what is currently known. The findings of this research will deepen
understanding of the security of the elliptic curve cryptosystems in
general, and relative cryptographic strength of specific classes of
elliptic curves in particular. The techniques and methodology
developed in the proposed research will provide the basis for future
research on similar issues in curve-based cryptography. A
long-term goal of this research is to explore the prospect of using
algebraic groups for building future generations of public-key
cryptosystems. Elliptic Curve Cryptography is also an excellent
subject to integrate research and education in mathematics and
engineering. Part of this project is to introduce students at all
levels and across disciplinary boundaries to research in this area
through well-designed courses, seminars and workshops.